SENSORS: Robust Event Services for Emergency Response in Sensor Networks

Stankovic - abstract

Wireless sensor networks, composed of 1000s of inexpensive devices, have the
potential to significantly improve emergency response systems for
earthquakes, floods and other natural disasters, as well as for
chemical and biological attacks. While each node must be very cheap and,
therefore, is likely to have limited capacity, the aggregate behavior of
the nodes should collectively determine the situation,
detect possible survivors, send necessary information to the nearest
rescue teams, identify a safe exit path for them, and monitor any
subsequent events of interests in the area. Since such emergencies
may last a long time and are highly dynamic; the system needs to adapt to
the changing environment, be robust, utilize
the limited resources efficiently, and meet any timing requirements.
This research is developing robust and real-time middleware services
for events and message delivery. In wireless sensor
networks events are not binary, but are based on sensor fusion
from many noisy sensors in complicated environments. Sensor data
may be missing, wrong, or out of date. Consequently, the event service
must support real-time, data fusion, confidence calculations, and
conserve power. Events can occur in a very local region, be global or occur
simultaneously in many parts of the system. The event service must be
highly decentralized in order to work on the limited capacity
devices. The service must also minimize false alarms.
All of these features makes an event service for wireless
sensor networks very challenging. The ultimate vision of
this work is to provide a facility that allows the application to specify
the desirable data and events, and deliver them in a timely manner.
If this research is successful, emergency response can occur
more quickly, and be more accurate; lives can be saved and damage
reduced.